High Order Methods for Linear and Nonlinear Waves

Shu
0207451
The investigator and his colleague study high-order-accuracy
computational methods for linear and nonlinear waves, with
emphasis on shock wave calculations and simulation of
electro-magnetics waves. The work includes the development and
analysis of high-order finite difference, finite element, and
spectral methods, as well as applications of these methods to
computational fluid dynamics and computational electro-magnetics.
In particular, the efforts include the following components:
high-order methods for shock wave calculations, including finite
difference WENO schemes, spectral methods for supersonic reactive
flows, and finite element discontinuous Galerkin methods;
high-order methods for Maxwell's equations; and perfectly matched
absorbing layers.
Computers are now used more extensively in engineering and
other applied sciences. An important component to effectively
use computers is the design and analysis of efficient numerical
algorithms. Important applications such as computer-aided design
of aircraft are to a large extent dependent on efficient and
reliable algorithms designed by applied mathematicians. The
high-order methods the investigators develop and analyze in this
project should significantly increase the efficiency and
reliability of algorithms used in crucial application areas such
as aerospace industry, communications, and material science.